CIF:Small:Collaborative Research:Security in Dynamic Environments: Harvesting Network Randomness and Diversity

The project aims at quantifying a general network's inner potential
for supporting various forms of security by achieving secret common
randomness between pairs or groups of its nodes. Statistical and
computational secrecy measures are being considered against a general
passive adversary. Common-randomness-achieving protocols are classified
into two groups: culture-building and crowd-shielding. The former achieves
common randomness between nodes situated in close proximity of each other,
from correlated observations of specific (natural or induced) network
phenomena. The latter ties together the security of multiple communication
links, to the point where an adversary can no longer isolate and attack
a single link without attacking the group as a whole. The broad range of
investigated protocols cover multiple topics, from multipath diversity
to network tomography, from secure network coding to protocol coding,
and from anonymous routing to the spread of epidemics. The protocols
harvest network randomness from diverse sources like ciphertext blocks
originating at various terminals, contention protocols (delay randomness)
or network topology (in highly-dynamic, or ad-hoc networks).

Communication networks are naturally dynamic, inherently redundant,
and largely unpredictable. While the former two features have long
been recognized as a valuable resource for integrity, efficiency
and confidentiality, network unpredictability is often regarded as an
incommodity. This project shows how network randomness can be harvested,
and, together with diversity, exploited to enhance communication
security. In doing so, it develops a more profound understanding about
the statistical nature of networks, which can be applied to a broad range
of information-assurance objectives. The technical approaches and the
general philosophy developed in this project, and disseminated through
conferences and seminars, have the potential to inspire an abundance of
related research. The project will directly impact dozens of students
through Senior Design projects, a research-and-open-project approach to
curriculum development, and three new graduate courses containing related
topics. The PIs are actively involved in programs aimed at increasing
the involvement of women, underrepresented minorities, and persons with
disabilities in engineering and computing sciences.